Regional Systems and the Modern Transformation of Agrarian Societies: Population and Development in France, Japan, and China

This project employs a model of spatial differentiation to analyze the modern transformation of three agrarian societies - France, Japan, and China -- during comparable spans of "development time" (1760-1896 for France, 1800-1926 for Japan, and 1842-1990 for China). The research team, an anthropologist, a geographer, a demographer, and an historian, will follow a comparative research design to advance our knowledge of an important interdisciplinary issue: the interaction between population processes and economic development in space and time. Using disaggregated quantitative data and regional systems methodology, the researchers will complete an analysis of each country's regional structure, conceptualized as a hierarchy of central places and of their internally differentiated hinterlands, and proceed to test propositions concerning population and development. Then, in three comparable subregions (centered on Bordeaux, Nagoya, and Ningbo) they will replicate the analysis at lower levels of the hierarchy and pursue longitudinal studies, tracing the diffusion of modern innovations downward through the spatial hierarchy. In selected local systems within each of the targeted subregions, they will use the methods of historical ethnography to extend the analysis to the village level. The project is expected to demonstrate the analytical power of the regional systems model, revealing its utility for a wide range of research in the social sciences.